High Performance Network Connection to vBNS

This award is made under the high performance connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for two years for an OC-3 connection to the Very High Performance Backbone Network Service (vBNS). The connection is through the MREN (Metropolitan Research and Education Network) ), an OC-12 ATM ring connecting several research institutions in the Chicago area to each other and to the vBNS. Applications include projects on compilers, VLSI CAD, distributive higher performance computing, optimization techniques, and x-ray research. Collaborating institutions include San Diego Supercomputing Center, Argonne National Laboratory, Cornell Theory Center, Pittsburgh Supercomputing Center, and the National Center for Supercomputer Applications.